PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Jonathan W. Luk is "Weakly inhomogeneous solutions to the Landau equation and the Boltzmann equation without angular cutoff." The host institution for the fellowship is University of Pennsylvania, and the sponsoring scientist is Dr. Robert M. Strain.